Data-Enabled Acceleration of Stochastic Computational Experiments

This project will advance the ability to accelerate stochastic computational experiments with the aid of heterogeneous data (for example, empirical observations, multi-fidelity simulations, and expert knowledge). This work is motivated by the trend of computational experiments in science and engineering. These experiments increasingly rely on probabilistic models to represent epistemic uncertainties (such as those in physics-based model specification) and aleatory uncertainties (noise in experiments and observational data). To date crude Monte Carlo simulation dominates such stochastic computational experiments mainly due to its simplicity. Efforts to accelerate the experiments have generally been ad-hoc and narrowly applicable to a particular science or engineering problem. This project will produce methods and tools for domain scientists and engineers with a potential to expedite or even enable breakthroughs based on stochastic computational experiments. These methods will help overcome the computational challenge associated with investigating unusual strings of events (for example, nuclear meltdown, cascading blackout, and epidemic outbreak) that are critical to the nation's economy, security, and health. To maximally reach out to domain scientists and engineers, this project will design and implement an open-source software package of the methods. An online workshop will be designed and conducted to demonstrate the software and train researchers and practitioners. To build the capacity of the next generation of researchers and practitioners, the project team will recruit and engage with college and high-school students, especially those from underrepresented backgrounds, through a partnership with diversity enhancement programs in the university. Graduate students will be directly involved in designing and executing research, while undergraduate students will participate in software development and testing, being mentored and trained as data-enabled computational researchers.

Even though comprehensive consideration of uncertainties in a scientific or engineering study is commendable, an unguided computational investment on crude Monte Carlo simulation often results in an enormous waste of time and resources. Furthermore, to attain a required accuracy of probabilistic analysis, the associated computational burden can be a major bottleneck or even a barrier to scientific and engineering discovery, especially when the event of interest is extreme, rare, or peculiar. To address this challenge, this project will innovate a unified methodological framework that leverages heterogeneous data for speeding up stochastic computational experiments without compromising the accuracy of probabilistic analysis. The framework will include methods for identifying and exploiting a low-dimensional manifold (naturally appearing in science and engineering) of high-dimensional simulation input space to speed up stochastic computational experiments by addressing the curse of dimensionality. For the accelerated probabilistic analysis, asymptotically valid confidence bounds will be constructed to ensure the desired analysis accuracy. The framework will prescribe how to adaptively allocate computational resources for exploring the simulation input space while exploiting the important input manifold to minimize the computational expenditure while maintaining the desired analysis accuracy. The project will validate the methods and verify the open-source software developed for broader impacts, based on two engineering simulation case studies, namely, structural reliability evaluation of a wind turbine and cascading failure analysis of a power grid.